Calculus Reform: A Retrospective -A Special Issue of UME Trends

9452957 Dubinsky A special issue of the journal Undergraduate Mathematics Education Trends is being developed to inform the mathematics community about the first decade of Calculus Reform. The issue is being disseminated to more than 70,000 individuals. The articles for the special issue will examine key issues of the Calculus Reform movement and will range over its extent and effects, measures of success, and basic questions of content, pedagogy, and technology.